Center for Nonlinear Analysis: Research and Training in Applied Mathematics

Proposal ID: 0635983
PI: Irene Fonseca
Institution: Carnegie-Mellon University
Title: Center for Nonlinear Analysis: Research and Training in Applied Mathematics

Abstract

The Center for Nonlinear Analysis (CNA), founded in 1991 in the
Department of Mathematical Sciences at Carnegie Mellon University, is
a center for research and training in applied mathematics supported by
the National Science Foundation. The continued funding of the CNA from
the RTG program will allow it to recruit strong US graduate students and
postdocs and expose them to the wealth of expertise in nonlinear
analysis, computation, and interdisciplinary activity
that exists across Carnegie Mellon research units. The goals of the CNA
include:
-- To identify cutting-edge mathematical questions in science and
engineering, including materials science and biotechnology, to
highlight emerging and
new areas in mathematics deriving from applications, and to develop new
applications of mathematical sciences;
-- To maintain and sustain its leadership in the areas of Calculus of
Variations and PDEs;
-- To promote collaborations between applied mathematicians and
allied scientists;
-- To continue to develop international partnerships
and cooperation agreements, which play a vital part in
the CNA program and in the enhancement of the
scientific training and research activities of the Center;
-- To maintain its position as a worldwide asset in the education
of young investigators cognizant of research opportunities at the broad
interface between mathematics and physical sciences and engineering;
-- To continue the valuable work of the Summer Undergraduate Applied
Mathematics Institute (SUAMI), which targets minorities and women with
the goal of recruiting them to pursue graduate study in applied mathematics.

Over the past 15 years the CNA has trained more than 52 postdoctoral
fellows. The CNA is very proud of its trainees: Several former CNA
postdocs are now scientific leaders in their own right at research
institutions in the US and abroad, and many others are ripe to assume
leadership roles in the near future. The imprint of the CNA in the
mathematical and scientific community is large and growing. The
collaborations of CNA members with experimentalists, theorists,
physical scientists, and bioscientists, render this group one of the
strongest research and training groups in applied mathematics in the
US and in the world. Investigators associated with the CNA have been in
the front ranks in integrating the discovery of new mathematics and
mathematical ways of understanding with other modes of scientific
investigation, particularly in materials science.
The aim is to develop first-rate mathematical science in
ways that have a healthy and exciting relation to emerging areas of
importance in the physical and biological sciences.